Studies in Organic Chemistry

The focus of this research is the development of new chiral catalysts. Neutral bis(oxazoline) bidentate and pyridine-bis(oxazoline) tridentate ligands will be employed in conjunction with cationic copper(II), zinc(II), and aluminum(III) salts for the generation of new families of chiral Lewis acids. These chiral complexes will be investigated in the enantioselective catalysis of bimolecular and intramolecular Diels-Alder reactions, Mukaiyama aldol reactions, cunjugate addition reactions of unsaturated imides and alkylidene malonates and the reduction of beta-ketoesters. Enantioselective olefin cyclopropanation, and aziridination will also be explored as will approaches to the synthesis of new chiral multi-dentate ligands bearing stereogenic P-chiral phosphorus and S-chiral sulfur ligands where chirality at the metal-bound heteroatom is either defined or induced from proximal stereogenic carbon centers. During the course of the above studies, relevant target-oriented natural products syntheses will be used to illustrate the generality of the reactions being developed. With this renewal award, the Synthetic Organic Program is supporting the research of Dr. David A. Evans of the Department of Chemistry at Harvard University. Professor Evans will focus his work on projects that center on the development of new stereoselective organic reactions with an emphasis on absolute stereocontrol through asymmetric catalysis. Development of this type of methodology has an important impact on the fields of medicine, biology and materials science.